A Parallel Computer Implementation of the Transient Energy Function Method for Dynamic Security Assessment of Large Power Systems

The proposal is aimed at transferring the implementation of certain large-scale system stability calculations (the so-called Transient Energy Function) from its current serial-computation environment. Since these algorithms are intended for eventual use in an on-line decision making environment, demonstration of a significant speed advantage gained by large-scale parallel coputation, together with the experience of remote computational access is crucial to continuation of scientific inquiry into the technique.